ITR: Design Space Exploration and Synthesis for Multiple-Mode Embedded Systems

Sha abstract

The complexity of an embedded system is growing rapidly
from single mode to multiple modes for achieving adaptability but
the algorithms and tools for enhancing design productivity are much
under-developed.
This ITR project is aimed to develop new
techniques and design tools for architectural-level synthesis,
code generation, and design space exploration
of multimode embedded systems.
The goal of multimode system synthesis is to determine the best
architecture (including processors with various types,
special hardware components, memory, interconnects, etc.) with
the minimum cost and
generate the optimal codes and schedules
for each mode and the transitions of modes.

In order to build up a solid foundation of this new area,
the project conducts a fundamental study to understand properties and
develop provable algorithms to achieve the following objectives: (1) Multiple objective optimization.
The project develops optimization algorithms considering multiple
objectives, and understands the relationship among them.
Scheduling and combined optimization
techniques such as retiming, unfolding, and code-size minimization
are developed. (2) Design space minimization and exploration.
The project utilizes the obtained relationships among various design criteria,
derives strict lower bounds and upper bounds, and
minimizes the design space to explore. (3) Multiple-mode synthesis.
The project analyzes multiple mode system behavioral models,
and studies the global optimization and synthesis of multimode system.